Acquisition of Instrumentation for Functional Genomics and Beyond

The overall objective of this Major Research Instrumentation proposal is to create a science and technology infrastructure that fosters the development and integration of functional genomics and information technology at Texas A&M University (TAMU). The requested cluster of genomics instrumentation will automate DNA library construction, DNA purification, liquid handling, DNA sequencing and genetic marker analysis. The infrastructure will support NSF's Plant Genome Program, an A. nidulans genome sequencing project recently started in collaboration with industry at Texas A&M University, and a growing number of research and teaching activities in the area of genomics. In addition, the instrumentation will accelerate progress on the construction of integrated genetic and physical maps for numerous organisms, provide access to DNA microarray technology for analysis of whole genome expression, and facilitate studies of gene expression in differentiated cells. The requested instrumentation will also provide tools required to integrate the power of genomics, GIS, and remote sensing for the study of plant function in natural micro- environments. Genome projects are generating tremendous amounts of new DNA sequence information and creating novel tools, such as DNA chip technology, for genome wide analysis of gene function. In 1996, the sequences of several bacterial genomes and the yeast genome were completed. For plants, the A. thaliana genome (120 Mbp) is scheduled for completion by 2000 and a rice genome project is being planned as pan of NSF's Plant Genome Program. Even more impressive is the scheduled completion of the 3,000 Mbp human genome by 2005. The rate of DNA sequence information generation currently surpasses the scientific community's capacity for utilization. A surprising 30% or more of the genes discovered in the sequencing efforts currently have no known function. Therefore, one overall goal of this proposal is to develop an infrastructure t hat connects gene discovery through sequencing to the analysis of gene function at molecular, cellular, tissue, and organismal levels.